III: Small: Simultaneous Decomposition and Predictive Modeling on Large Multi-Modal Data

Several modern data mining applications involve predictive modeling on large
amounts of multi-relational data with added structures such as product
hierarchies or social networks among customers. The broad goal of this proposal
is to develop a comprehensive framework for predictive modeling on large,
heterogeneous, multi-relational data based on "Simultaneous Decomposition and
Prediction" (SDaP) approaches that iteratively partition the problem into more
homogeneous and manageable pieces while concurrently building multiple
predictive models, one for each piece. Such approaches lead to simpler and more
accurate solutions. The proposed algorithmic strategies that determine how many
models to learn and where they should apply, which data to discard and which to
keep, how to learn multiple related tasks defined on multi-modal data, and how
to scalably implement the solutions on distributed computers, provide practical
solutions to certain real-world problems for which current learning and data
mining techniques are severely lacking. Application domains of ecology, bio-
informatics, market research and web mining are specifically identified and
targeted.

There are two broad research impacts of the proposed project: (a) it further
vitalizes the research in data mining towards better algorithms for predictive
modeling on rich and heterogeneous multi-modal data, and (b) provides and
promotes the SDaP approach as a fundamental data analysis tool across multiple
disciplines. The PI will organize a workshop and offer a tutorial at major data
mining conferences to foster and promote research on various aspects of SDaP
analysis. Moreover, the curated complex datasets and software developed under
this project will be shared with the scientific community via a public web site
as part of the proposed one-of-a-kind multi-relational data benchmarking
facility. The PI will further develop a novel graduate course on Modeling and
Analysis of Complex Data. Outreach modules that illustrate data analysis
concepts and capabilities at levels appropriate for pre-college students will
also be developed. For further information see the project web site at the URL:
http://www.ideal.ece.utexas.edu/projects/sdap/